Career: Evaluation of Stress Redistribution and Notch Sensitivity in Ceramic, Polymer, and Metal Matix Composites

9624705 Mackin This CAREER award is to study the connection between microscopic and macroscopic mechanical properties. The educational plan will provide state-of-the-art programs to experimental and theoretical mechanics for undergraduates as well as a connection with current industrial problems. The research emphasis will be given to internal stress and strain distributions in composites and how these change as damage accumulates. The combined use of a non- contact stress measurement technique known as SPATE and a newly developed strain mapping method called DAiSleS will provide the experimental data needed. ***